Water Learning Lab

The South Central Connecticut Regional Water Authority, the Eli Whitney Museum, and the Calvin Hill Day Care Center will collaborate to create a Water Learning Lab. These partners and teachers from 16 towns will design and develop the center to met the curriculum needs of 1st through 5th grade classrooms. The outdoor facility will offer "hands on" and "hands in" experiences in the movement, power, measurement, purification,and distribution of water. It will offer opportunities for group building projects: canals, aqueducts and an introduction to the tradition of engineering begun by Eli Whitney on this site. The project will train 30 teachers each year intensively. The training will encourage experience-directed learning in the classroom. The project will identify gifted natural mechanics who may not show their full talents in conventional classroom work.